A Conference in Probability at Cornell - In Honor of Harry Kesten

9705658 Durrett This award provides funds to partially support a research conference in probability to be held at Cornell University, June 28 - July 1, 1998. The purpose of the conference is to look at exciting areas of current research in probability and to identify important problems for the next ten years. One hour expository talks will be given by some of the leaders in the study of probability.